Extending Charge Carrier Lifetimes in Black Phosphorus/Carbon Nitride Heterojunctions

Solar-driven photocatalytic systems hold tremendous promise for advanced chemical manufacturing, yet their efficiency is fundamentally limited by the vast mismatch between ultrafast light-driven charge separation (femtoseconds to nanoseconds) and slow catalytic turnover (seconds). Competitive charge recombination during this gap represents a critical bottleneck. Professor Christine Caputo from the University of New Hampshire is working to address this challenge by engineering structural variants of a visible-light-harvesting semiconducting polymer, carbon nitride, with the goal to dramatically extend charge carrier lifetimes which will improve photocatalytic efficiency for fuel generation. This project will develop a mechanistic framework for understanding how molecular-level design decisions govern photocatalytic activity in two-dimensional materials. Beyond the laboratory, this project will engage the broader public through the Seacoast Sips of Science program at the University of New Hampshire and an annual Energy Discovery Day for K–12 students, advancing science literacy and creating community connection to the real-world impact of this research.

Professor Christine Caputo from the University of New Hampshire is studying structural variants of a visible-light-harvesting semiconducting polymer, carbon nitride, to dramatically extend charge carrier lifetimes in photocatalytic systems with the aim to improve photocatalytic efficiency for fuel generation and chemical manufacturing. This work will help bridge the spatio-temporal gap between ultrafast exciton formation and slow catalytic turnover. Synthetic functionalization of carbon nitride with boryl groups will enable photogeneration of persistent radicals in this material. These boryl groups can be introduced bearing secondary bipyridyl binding sites that can ligate transition metals. This will position catalytic centers adjacent to charge storage sites, connected by a conjugated linker to facilitate charge transfer from material to catalyst. Mechanochemical and sonochemical methods will be employed for the creation of heterojunctions between boryl-functionalized carbon nitride and black phosphorus will further extend carrier lifetimes by facilitating interfacial hole extraction. The interfacial interactions between the two materials will be characterized by Raman microscopy/spectroscopy and tunneling atomic force microscopy. Charge carrier lifetimes in boryl-functionalized carbon nitride and in the heterojunction will be quantified by time-correlated single photon counting and electron pair resonance spectroscopy, providing direct spectroscopic insight into how structural modifications and formation of a heterojunction can alter charge carrier dynamics. Photocatalytic performance of all materials will be rigorously evaluated, and the structure-activity relationships developed through this work will relate charge carrier lifetime to catalytic turnover numbers. This project will develop a mechanistic framework for understanding how molecular-level design decisions govern photocatalytic activity in two-dimensional materials. Beyond photocatalysis, the findings carry broader implications for solar-light-chargeable, magnetic and quantum materials, and interfacial charge storage layers.